CDC Workshop: Cross-Disciplinary Research and the Role of Industry

We propose to organize a workshop at the upcoming Conference on Decision and Control (CDC) to bring together academic, industry, and government researchers to explore cross-disciplinary research and interaction with industry. The purpose of the workshop is to discuss successful mechanisms for integrating academic research in control with industry applications and, in particular, cross-disciplinary teams. The workshop will involve 8-10 invited speakers and will be open to all participants of the CDC.